Interagency Agreement - Minority Achievement in Science and Engineering

This is an interagency agreement between the Department of Education (National Center for Education Statistics) and the National Science Foundation for the study of issues relating to minority students' achievement in science and mathematics. Its primary purpose is to examine the current status of achievement among minorities and to identify various student, home, and school factors that help students learn science and mathematics. Both descriptive and higher-level statistical analysis strategies will be used, depending on the nature of issues to be addressed. Results of analysis will be summarized and discussed in a report prepared for dissemination to the general public. Results of this study will provide an informed basis for developing programs and improving educational practices for minorities.